Photonuclear Experiments

Research in photonuclear reactions will be carried out. The near term experimental effort will be directed towards the Saskatchewan linac/pulse stretcher ring, where measurements of the three-body break-up of helium-3 will be performed to provide detailed structure information to confront exact three-body calculations. Longer term CEBAF projects are under development. Photodisintegration of the deuteron will be carried out at high energies searching for the conjectured breakdown of conventional meson-nucleon descriptions of the process. Circularly polarized photons and a polarized hydrogen target will be used to test the Drell-Hearn-Gerasimov sum rule relating to the structure of the proton.